Metropolitan Nashville Public Schools (MNPS) Urban Systemic Program

Metro-Nashville Public schools (MNPS) proposes to design and implement a project titled: Metropolitan Nashville Public Schools (MNPS) Urban Systemic Program. The vision for MNPS is to institutionalize the teaching and learning of science and mathematics for all K-12 students through this Urban Systemic Program (USP). The overall objective of this initiative is to substantially elevate student interest, participation, and achievement in K-12 science and mathematics and to foster broader career opportunities for all students graduating from the MNPS. Ultimately, this initiative would foster greater workforce diversity, high standards, achievements, and success for all students.

Fundamental, comprehensive and coordinated changes in education will be supported by changes in policies, financing, management, course content, and pedagogy to sustain the systemic reforms. This USP Award will allow the MNPS to move forward aggressively to implement sustaining successful strategies that will enhance the district's capacity to provide K-12, standards-based, science, mathematics, and technology education for all students. MNPS plan to utilize the USP resources to catalyze the districts investments and converging resources to improve science, mathematics, and technology teaching and learning for all students and to meet its' equity and excellence goals.